CICI: TCR: Cyber Threat Triage and Investigation for Scientific Institutions via Adaptive Deployable Provenance Analysis and Agentic AI-Based Threat Intelligence

Advanced cyber attacks increasingly target the cyberinfrastructure of scientific institutions (SCI). Recent collaborations with university cyberinfrastructure facilitators reveal that SCI faces significant challenges in defending against these attacks due to limited cybersecurity expertise and resources. To address these challenges, SCI needs solutions that not only reduce cyber threat triage workload but also reconstruct complete attack campaigns from heterogeneous system traces to support effective investigation. Achieving this goal requires integrating system audit data, application-specific semantics, and cyber threat intelligence (CTI) across diverse computing environments. However, existing security solutions either generate excessive false positives by analyzing isolated system events or rely on predefined attack patterns that detect only a limited range of known attacks.

This project aims to develop a novel system for cyber threat triage and investigation by integrating adaptive system auditing, application semantics, CTI, and collective AI agents. The project will: (1) develop an adaptive provenance collection framework that combines lightweight anomaly detection with selective memory monitoring to efficiently capture evidence of stealthy attacks; (2) develop contextual knowledge extraction techniques that derive application semantics from system logs and structured knowledge from CTI reports; and (3) develop a collaborative AI framework that integrates system audit data, application context, and CTI to correlate alerts, reconstruct attack campaigns, retrieve evidence, and generate explainable investigation results. This project will establish a new paradigm for AI-assisted cyber defense in SCI by integrating provenance analysis, application contexts, and CTI knowledge, enabling scientific institutions to better protect cyberinfrastructure while advancing explainable and practical cybersecurity technologies.